Evaluating Water Quality for Lake Management

The objectives of this project are to design a set of lake evaluation techniques that can be used to understand the functioning of an individual aquatic ecosystem and to use this approach to predict the impact of land or water use on water quality. The investigation combines laboratory and field experiments, empirical relationships, and mathematical modeling techniques.